Collaborative Research: Magellan II Echellette Spectrograph

AST-0215989
Thompson, Ian B.

An infrared echelle spectrograph will be designed, fabricated, assembled and tested for use at the Magellan II telescope by researchers associated with the Magellan consortium. It will be capable of observing faint targets in the wavelength region in the UV (blueward of 3600 Angstroms), while maintaining high resolution and full wavelength coverage of the visible spectrum. The design incorporates a medium order reflection diffraction grating in combination with a large fused-silica prism to provide cross dispersion. A Schmidt camera with 140-mm focal length will focus the 100 mm collimated beam onto a low noise; back illuminated CCD optimized for UV coverage.
***